A Proposal to Support Students and Young Scientists in 2006 IEEE Communication Theory Workshop in Dorado, Puerto Rico, USA

The proposal requests partial support for young researchers and students to participate in 2006 IEEE Communication Theory Workshop in Dorado, Puerto Rico. The NSF support will provide opportunities for 20 young participants to interact with established researchers in a small workshop setting. The focus of the workshop is on the interplay between communication theory and networks.

The broader impact of the proposal is fostering an environment of technical discussions and debates among two different communities of communication theory and networking. In addition the workshop is set out to encourage participation by young scientists and researchers.